User Interface Designers Aide

The User Interface Design Environment, UIDE, is a tool which assists in user interface design, prototyping, testing, and implementation. The heart of UIDE is a knowledge base representation of the conceptual design of a user interface. A set of user interface design alternatives which can be applied to the knowledge base a have been defined. The transformed interface can be implemented via a User Interface Management System (UIMS). The capabilities of the system will be developed in the following ways: (1) Extend the logical structure of the knowledge base, to make it more useful and powerful. (2) Incorporated more sophisticated transformations. (3) Automatically organize menus and dialogue boxes. (4) Evaluate the interface design with respect to speed of use, using a key- stroke model analysis. (5) Provide intelligent help to the end user, especially "help by showing". (6) Support interactive specification of the knowledge base by the user interface designer, including checks for consistency and completeness.